Design of Step Motors

Electric step motors are discrete incremental-motions devices that rotate through small angles in response to drive pulses. They are widely used as precision mechanisms in electric typewriters, computer printers and plotters, and small robots and machine tools. Step-motor design is extremely complicated if all phenomena are accommodated, and thus most step motors are designed by "cut and try" variation on proved designs. The work to be done under this grant should yield systematic design and analysis tools that accommodate the major phenomena affecting step-motor performance while not requiring highly specialized training or experience.